Symposium Q: Nucleation Phenomena-Mechanisms, Dynamics and Structures; April 12-16, 2004; San Francisco, CA

A four-day symposium focusing on nucleation will be held during the 2004 Materials
Research Society (MRS) Spring Meeting, Moscone West, San Francisco CA during April
12-16, 2004.
Intellectual Merit
Nucleation of new phases underlies processes and phenomena of interest to scientific
fields ranging from atmospheric science through pharmaceutical, colloid, materials, and
surface sciences to biomineralization, biotechnology, and medicine. It is believed that
the underlying process of nucleation in these diverse systems is universal. There is,
however, no consensus regarding the nature of this universal process. The purpose of the
symposium is to make progress toward a fundamental understanding of nucleation.
Broader Impact
This symposium will bring scientists from diverse and interdisciplinary research areas
together to examine the subject of nucleation and the extent to which the underpinnings
of nucleation are universal.
The funds obtained from the National Science Foundation will be used to support the
participation of six speakers from the US (registration fees and travel costs). Preference
will be given to young researchers (assistant professors and graduate students).